Pathways to Careers in Information and Communication Technology

Computer Science (31)

Intellectual Merit:
This project is focusing on enhancing and expanding technician education by developing a comprehensive educational model which provides technicians with essential workplace skills. The project is enhancing an existing associate degree program to include industry standards, rigorous academic training, industry based work experiences, and courses geared toward preparation for a variety of industry certifications. This program is transforming IT technician training in Louisiana and ensuring their technicians a relevant, timely, and challenging training experience.

Broader Impacts:
Through the project's involvement in three Louisiana Technical College (LTC) districts, 15 campuses, and three secondary school districts, it is making a statewide impact. Results are being disseminated to LTC Institutions, their Regents, and selected regional workforce training agencies.